Collaborative Research: Diffusion-Engineered Embedded Printing (DEEP) of High-Performance Biothermoplastics

This award supports the NSF mission of advancing national health by establishing an innovative additive manufacturing method, termed diffusion-engineered embedded printing, to produce high-performance biothermoplastics. These materials are critical for biomedical applications ranging from patient-specific implants and prosthetics to surgical tools and biomechanical devices. While recent advances in additive manufacturing have introduced several methods for printing biothermoplastics, existing approaches suffer from two major challenges: inferior mechanical properties and shorter biological lifetimes compared to injection-molded counterparts. These limitations stem from insufficient interlayer fusion and poor polymer crystallization. To overcome these challenges, this project plans a novel manufacturing strategy that prints molten biothermoplastics inside a high-temperature, liquid support bath, significantly improving both mechanical and biological performance of printed parts. Furthermore, this project develops a multi-level educational platform offering research-integrated additive manufacturing training to serve students across Nevada and Iowa.

This project will establish diffusion-engineered embedded printing, focusing on fundamentally understanding polymer diffusion mechanisms governed by an evolving, heterogeneous thermal environment. It aims to elucidate how these environments affect interlayer fusion, polymer crystallization, and the enhanced properties of printed materials. The research seamlessly integrates multiscale computational modeling with advanced experimental investigations. Specifically, the mechanisms governing inter-molecular diffusion and interface growth in interlayer fusion kinetics will be investigated through deep-neural-network-based molecular dynamics simulation, phase-field modeling, and advanced experimental characterization. Concurrently, polymer crystallization as affected by printing conditions will be studied through a multiscale computational framework and experimental validation. Furthermore, the mechanical and biological performances of the printed biothermoplastic products will be systematically evaluated to establish the process-microstructure-property interrelationship, with direct comparisons to injection-molded counterparts to demonstrate the efficacy of the method. The fundamental knowledge gained on interlayer fusion and polymer crystallization mechanisms is transformative across a wide range of polymer processing technologies.